Career-Awareness Experiences in Science and Mathematics for High-Ability Junior High Students

Western Illinois University will initiate a three-week, residential Young Scholars project in multidisciplinary Science/Mathematics for 30 students entering grade 8. The project consists of instructional and experiential activities on campus during the summer, one week of internship with practitioners in the field, a one-day fall colloquium, and once-a-month interactive satellite television (noncommercial) program sessions throughout the academic year. Instructional components include hands-on laboratory work related to research areas in each discipline as well as ethical questions relevant to career opportunities in science, technology and mathematics. Project staff includes University faculty with aid from junior high science teachers and business/industry representatives.